REU-Site: Interdisciplinary Materials Research

9531712 Silcox This REU-Site award presents an outstanding opportunity for fifteen undergraduates to engage in a materials research and educational activity over a ten-week summer period with faculty, students and staff in six interdisciplinary research groups in the Materials Science Center. The groups are pursuing an u understanding and control of materials at the nanoscopic scale. More specifically, the groups: (1) use creative chemical synthesis to understand and enhance the properties of polymer phase boundaries; (2) prepare and characterize polymer nanocomposites of metallic molecular clusters in polymer matrixes and layered intercalation composites; (3) explore the properties of optically active composite materials; (4) develop understanding and control of then film deposition on glass and (95) develop understanding of film deposition using energetic supersonic neutral and hyperthermal ion beam; and exploit uniquely structured nanoscale materials to elucidate fundamental issues of defects and impurities in quantum systems and quantum transport. %%% The goals of this program include: (1) enabling students to experience the thrill of carrying out their own research; and (2) encouraging students to use several world central facilities to perform their research and obtain marketable technical skills for their future careers. Students will be required to prepare a written report and present their research results orally at the end of the Summer research forum. ***